Calculus of Functors and Homotopy Theory

9971855
Arone
Arone is interested in applying the theory of calculus of functors
(developed by T. Goodwillie and M. Weiss) to study the unstable
homotopy of such spaces as spheres and classifying spaces of compact
Lie groups. Calculus of functors allows one to introduce certain
``derivatives'' of homotopy groups. If one understands these
derivatives well, one can use them to recover a lot of information
about unstable homotopy theory (this is analogous to the fact that if
one knows all the derivatives of an ordinary function at a point, one
can often recover a lot of information about the function by means of
Taylor series). The derivatives are really objects of stable homotopy
theory, and they normally come equipped with interesting symmetries of
certain classical groups, such as the symmetric or orthogonal groups
(division by the action of the symmetric group corresponds to division
by n! in ordinary Taylor series). Thus calculus allows one to reduce
questions about unstable homotopy theory to questions about
equivariant stable homotopy theory. This does not yield an effective
method for calculating homotopy groups (there probably is no such
method), but it does allow one to make interesting qualitative
statements about the global structure of homotopy theory. Analyzing
the derivatives of different objects, together with the accompanying
symmetries, has been the focus of much of Arone's work. These
derivatives seem to be very interesting objects on their own, and
studying them involves combining methods from stable homotopy theory,
equivariant topology, and group cohomology in fresh and unexpected
ways.
Many basic questions in mathematics, and in topology, in particular,
are of the following form: given two objects, describe the possible
functions between them. For instance, one can ask to describe the
space of continuous maps between two topological spaces, or the space
of embeddings of a circle into some physical space (this is informally
known as the space of ``knots''). These questions are usually very
difficult. This is so because the dependence of the space of
functions on the source and the target is very complicated.
Informally, one could say that the space of functions is a complicated
function of two variables. It turns out that, in analogy to ordinary
differential calculus, one can develop a theory of ``Taylor series''
of sorts for this kind of function and use it to approximate
complicated spaces such as function spaces by simpler spaces, in
much the same way as an ordinary function can be approximated by its
Taylor polynomials. This very striking idea was conceived by
T. Goodwillie. Much of Arone's work has focused on understanding the
``Taylor polynomials'' and the ``Derivatives'' in this context. This
has proved to be a fascinating and rewarding journey, which has
already led to interesting new results in (algebraic) topology. Some
of the results are of such a universal nature that there is at least a
slight hope that this work will have an impact on mathematics outside
hardcore algebraic topology.
***